Digital Government Community Building and Outreach (dg.o2)

EIA-0237452
Yigal Arens
University of Southern California

Digital Government Community Building and Outreach \(db.o2)

This award will support three annual conferences of the grantees and government partners of the Digital Government program, with expected attendance of 175 individuals per conference. Also supported will be the ongoing operation, maintenance and improvement of a digital government web sit at www.digitalgovernment.org. These two activities are key in the development of a research community related to electronic government and governance.